Green City Data Project -- Youth Inventory of Natural Areas

Green City Data is an after-school community service project. Teams of secondary students are trained to inventory urban natural areas selected by regional resource planning agencies to supplement their own data collection efforts. Representatives from seven agencies and educational institutions initiated this project to support development of a system of greenspaces within the Portland, Oregon/Vancouver, Washington metropolitan area. This consortium includes expertise in resource management, geography, biology, computer telecommunications, science education and community coordination. These and other community professionals tech students and volunteer team leaders (teachers or other adults) the basics of habitat identification and mapping in the context of regional planning. ***